The Transition to Alfven Wave Chaos

Alfven wave chaos is examined in two related studies. The first effort examines the driven Burgers equation, which has only one kind of shock wave, and is easier to solve than the more complex DLNSB equation. Using this equation it is possible to examine the essential dependencies of the onset of chaos on the number of harmonics and their growth rates. The second problem explores the analytic and numerical properties of oblique Alfven shock trains via the driven Korteweg- deVries-Burgers equation.